Annual Technical Meeting of the Society of Engineering Science, to be held in Texas in October, 1994

9409035 Lagoudas This grant is to partially support the travel expenses of twenty five advanced graduate students to the Society of Engineering Science Annual Meeting to be held at Texas A&M University in October 1994. ***